Mathematical Sciences: Representation Theory of Finite Groups

This project is concerned with the modular representation theory of finite groups over a field of finite characteristic p and in particular, the relations with the p-local structure of the group. The principal investigator will study perfect isometries, a recent concept introduced by Broue. This links invariants of block algebras of finite groups with the derived categories of block algebras. The configurations in classical Chevalley groups connected with the Alperin conjecture will also be studied, as well as, the classification of blocks in finite Chevalley groups. This research is in the general area of the representation theory of finite classical groups. One of the main applications of group theory to other mathematical and scientific fields is in representation theory, and finite classical groups are a primary source of finite simple groups.